Presidential Young Investigator Award: Dynamically TailoredStructures

This project addresses basic research in the optimal design of structures. The research experimentally investigates practical methods of tailoring structures to have optimal dynamic properties. This is a four-phase study comprising passive structural properties; understanding the fluid structure interaction phenomena; incorporating active sensors and actuators into the structure; and using distributed processors in the structural fabric.